ROW: Study of Production Processes in Compacting Roll Presser for Powered Materials

This is an ROW Research Planning Grant. The P.I. recently emigrated from Russia, and will use the funds to develop her career in the U.S. Her research area is roll-press compaction of powders, and the wear processes associated with this.